Automated Antenna Analysis Laboratory

This project exposes students to an Automated Antenna Analysis Laboratory, a computer-driven test and measurement system equivalent to that used in the Communications industry. Students using the AAAL study in great detail the performance of virtually all types of antennas including satellite dishes, mobile antennas and complex arrays. Using the AAAL equipment, students verify the performance of their antenna designs while learning the characteristics of automated-test systems. This laboratory also serves as a regional resource to other Technical Institutions in the area. This award is being matched by an equal sum from the grantee.